Robust Controller Design for Systems with Constraints

This research project is aimed at developing process control algorithms to handle both constraints and uncertainty. Constraints affect controller design because while the dynamic behavior of many processes can be accurately described by a linear model, system operation is always subject to constraints which are nonlinear elements. The controller has to be designed to handle these nonlinearities. Such constraints may arise from actuator saturation or processing limitations (certain temperatures and pressures may not be exceeded, for example). Uncertainty is a factor because the control designer never has a perfect dynamic description (model) of any real industrial process. The system is approximated and model order and parameters always contain some error, and may even change with operating conditions. The PI plans to implement two techniques for dealing with such problems, Model Predictive Control (MPC) and Anti-Windup Bumpless-Transfer (AWBT). MPC requires that the control objective is expressed in terms of a single quadratic objective function and the constraints are translated into linear inequality constraints. AWBT controller design proceeds in two steps where first an acceptable linear robust controller is designed neglecting all nonlinear loop elements and objectives. Then a compensation scheme is added which deals with the nonlinear issues such as constraints. This research will proceed in three steps: (1) A new robust linear MPC controller will be designed. It will be implemented in a nonlinear manner through an optimizer which aims at satisfying all process constraints while minimizing the deviation from linear behavior. (2) Development of an AWBT synthesis procedure that balances the trade-offs between smooth switching performance, measurement noise sensitivity and robustness. (3) Development of mechanisms to translate practical objectives and constraints into an MPC or AWBT formalism in an effective manner.